Puerto Rico Center of Excellence in Tropical and Caribbean Research

The University of Puerto Rico proposes the establishment of a Center for Tropical and Carribean Research. Researchers at the Center will study the following areas: Tropical Marine Natural Products, Tropical Terrestrial ecology, Geology in the Caribbean, and Natural Hazards Mitigation. The tropical marine ecosystems of the shallow and deep water of Puerto Rico are noted for their wide environmental and biotic diversity. Similarly, Puerto Rico, along with Hawaii, has the only other tropical rain forest in the United States. Puerto Rico is also located within a seismically active plate boundary. All of the factors provide a logical rationale for Puerto Rico's multidisplinary approach to research. The Center will be used to motivate minority students at all educational levels to consider careers in science and engineering. In addition, the Center will develop strategies to strengthen partnerships with industry and other major research institutions. This project meets the major goal of the Minority Research Centers of Excellence (MRCE) program: to increase the minority presence in science and engineering by making substantial resources available to upgrade the research capabilities of the most productive minority institutions. The project will at the same time enable this institution to use research as a tool to increase the effectiveness of related science and engineering activities for minority groups in its region. The Center will accomplish this by providing opportunities for faculty and students at the University of Puerto Rico and other nearby institutions with sizable minority student enrollments to engage in meritorious research that leads to publications in refereed journals.